Pressure Tuning Spectroscopic Studies of Intervalence Transition Bands

This Research Opportunities for Women Career Advancement Award is in the general area of inorganic chemistry. Dr. Nita A. Lewis of the Chemistry Department of the University of Miami will study electron transfer in diferrocenes and 4,4'-bipyridine-bridged ruthenium complexes under high pressure conditions. Because the intervalence charge transfer band of these species is solvent dependent, it is expected that high pressure measurements could yield information on the role of the solvent in electron transfer reactions. Two graduate students will participate in the project. Dr. Lewis has recently begun high pressure studies and this award will assist her in pursuing her goal of establishing a laboratory for high pressure research in inorganic chemistry in the United States.